Mathematical Sciences: Adaptive Nonlinear Inversion Algorithms

This project will develop computationally efficient and adaptive inversion algorithms for use in such disciplines as medical imaging, nondestructive evaluation, geophysical prospecting and robotic vision. Study will begin with the basic mathematical model for electromagnetic nondestructive evaluation. Phase II effort will refine the methods explored in Phase I, and develop a comprehensive computer code to implement the algorithm developed in Phase I, including a parallel version of the algorithm. Successful conclusion of this project would have a significant impact on the fields mentioned above, and would provide knowledge about applying conjugate gradients to nonlinear problems in general, and about developing versions of the conjugate gradient method for parallel computer architectures.